Non-iterative Numerical Methods for Boundary Value Problems

Static non-linear Partial Differential Equations (PDEs) describe a variety
of problems in physics and engineering. Numerical schemes are commonly
used to approximate the solution satisfying particular boundary
conditions. Such schemes usually require solving a large system of coupled
non-linear discretized equations. Iterative methods for such systems can
be very expensive computationally, often leading practitioners to use
alternative problem descriptions to avoid solving the full boundary value
problem. The investigator proposes a family of fast (non-iterative)
methods for a wide class of static PDEs, for which the direction of
"information flow" defines a natural ordering on the discretized
equations. In a joint work with J.A. Sethian, non-iterative Ordered Upwind
Methods (OUMs) were introduced for Hamilton-Jacobi PDEs arising in
anisotropic (& hybrid) control and in front propagation. The investigator
proposes to extend OUMs to boundary value problems describing differential
games and non-autonomous optimal control problems.
In a joint work with J. Guckenheimer, the OUMs were
previously applied to a special system of quasilinear PDEs to approximate
invariant manifolds of vector fields. The investigator proposes to extend
the invariant manifold approach to compute multi-valued solutions of
boundary value problems.

The efficiency of the proposed methods stems from the notion of
"causality" -- unobvious yet natural ordering of the elements of
computation. This approach is relevant for the applications as diverse as
robotic navigation and photolithography, seismic imaging and computational
geometry, optics and transient elastography, differential games and
segmentation of images. Which trajectory is optimal for a rover traveling
on the surface of Mars? With what delay and how strongly will an
underground explosion be felt by a sensor at a given point on the surface?
What are the optimal parameter values for etching and deposition in the
integrated circuit manufacturing? What is the minimum safe distance for
the aircraft collision avoidance? Will the electrical power system
automatically recover after a "fault"? Answering these important practical
questions in real time requires efficient and robust numerical methods for
solving the corresponding partial differential equations.